Seventh International Workshop on Fission-track Thermo- chronology

This action provides partial support for the Seventh International Workshop on Fission-Track Thermochronology to be held during the week of July 13-17, 1992 at the University of Pennsylvania. This field has experienced rapid development since the last workshop on this subject four years ago and the outcome should be of considerable benefit to Fission-Track geochronologists in their efforts to date tectonic events by this method.